Comparative Vision and Attention

Many researchers study how nonhuman animals see the world. To date, however, only certain types of comparative studies have been possible, given the limitations of animal learning and response capabilities. With funding from the National Science Foundation, Drs. Nakayama and Pepperberg at Harvard and Brandeis Universities will address questions about visual processing in Grey parrots. Taking advantage of Grey parrots' ability to mimic human speech, Pepperberg was able to train a Grey parrot to verbally respond to simple optical illusions (e.g., the Müller-Lyer illusion, in which two lines appear to humans to vary in length but in reality do not). The parrot’s responses indicated that it also perceived the illusions. Drs. Nakayama and Pepperberg will train additional birds to learn to label various colors and shapes using the sounds of English speech. The current project will then examine whether parrots, like people, can (a) complete the shape of a partially covered object (e.g., see a square partially occluded by a circle as still being a square), and (b) "see" objects that aren't actually there, like a triangle that seems to appear (to humans and primates) between three pac-man-like partial circles that are arranged in a triangular manner, something formally known as an "illusory contour" or "Kanizsa figure." One might expect a parrot to be able, for example, to infer the presence of a predator that isn't fully observable, but no one has been able to ask any nonhuman such questions directly. Future research will involve more complex tasks designed to study how birds pay attention to objects in their visual environment.

The underlying long-term goal of this research is to determine whether the tasks reveal differences in perceptual processing between birds and humans. Success in training the parrots will enable Drs. Nakayama and Pepperberg eventually to examine a broad range of visual tasks to determine which perceptual abilities share the same underlying mechanisms in birds and humans and which do not. Comparisons between these two species with very different brain sizes will allow us to understand which components of perception can be implemented with smaller scale neural architecture and which require greater brain size and/or complexity. The data will guide future comparisons with other species and provide insights into the structure and function of the human brain and may provide useful insights for the design of artificial visual processors.